NSF Young Investigator

9457148 Blumenthal All optical photonic switch networks shall be studied, by developing and experimentally implementing new bufferlens all-optical routing techniques. These techniques will be applied to novel multiwavelength photonic switch architectures. Physical limitations to the size and scale of multihop multiwavelength networks will be experimentally investigated. ***